Workshop on Heat Flux Sensors

ABSTRACT CTS -- 9423736 A small (10-15 person) workshop will be organized and held on the accuracy and calibration of heat flux sensors for use in convective and radiative transfer measurement. The workshop will be organized by Prof. Robert J. Moffatt of Stanford University, and will bring together eminent researchers in heat flux sensor development and use. The workshop will be jointly sponsored and funded by NIST, which has an equal interest in the area.